Investigation into the Dynamics of the 1986-87 El Nino usingGEOSAT Altrimetric Sea Level and In Situ Dynamic Height in Conjunction with Numerical Modeling

In this project, the P.I.'s will continue studies using sea level data from the Navy's GEOSAT satellite. Operationally, they are producing 17-day maps of large-scale sea level distribution in the equatorial Pacific. Comparison of these products with island sea level measurements will be used to investigate meso- and basin- scale circulation in the equatorial and mid-latitude Pacific.